Fundamental Studies in Elastohydrodynamic Lubrication

The goal of this study is to expand a recently developed numerical model of elastohydrodynamic lubrication. In this region of lubrication, both the physical properties of the lubricant (i.e., the effect of pressure on viscosity) and the mechanical properties of the solid surfaces (i.e., the elastic deformation) must be considered simultaneously. The previous models in this region are only applicable to idealized situations and do not consider real effects such as the surface roughness, the non-Newtonian lubricant behavior, and the temperature. It is planned to incorporate these effects in the model and to check the model experimentally. The outcome of this research would be clearly relevant to analysis of lubrication in real tribological systems where such effects cannot be ignored.